SGER: Miocene Fossil DNA: The Potential and Limitations of Molecular Paleobotany

This research is to explore the feasibility of extracting, amplifying, and sequencing phylogenetically informative nuclear and chloroplast DNA from a broad array of Miocene plant fossils, amplified and sequenced. Sequence analysis of chloroplast DNA and nuclear ribosomal DNA has provided the most powerful tool for rigorous analysis of the phylogeny of green plants. However, the evidence for inferring phylogenetic pattern is indirect---i.e., cpDNA and rDNA has been compared only for living members of the Chlorophyta. If successful, this research would permit the direct incorporation of fossil materials into phylogenetic analyses. The ability to isolate and analyze DNA from fossil specimens would therefore provide: (1) a control for phylogenetic inferences based on modern taxa; (2) an opportunity to calibrate the phylogenetic trajectories that have been hypothesized; and (3) the chance that precursors could be fit into the phylogenetic framework. It is unclear if extraction of fossil DNA can be accomplished routinely, and there is some skepticism based on structural and theoretical grounds that it is not feasible to expect good returns of fossil DNA. Also, it is unclear whether chloroplast and nuclear DNAs will be equally extractable (there is a possibility that cpDNA is less labile since it is borne within the chlorplast membrane). This research will focus on a rich and diverse fossil bed in Idaho.